Inverse Problems in Mathematical Finance: Exploring Bayesian Model Selection Algorithms

Technical Description

This project explores information-theoretic ideas for solving model
selection problems in Mathematical Finance. Typically, these problems
consist in the specification of a diffusion measure, or more generally, a
measure on path-space, which describes the future states of the market.
The data used in the inversion consists of expected values of functionals,
which correspond to observed prices of "benchmark" securities. This
problem is studied from the point of view of partial differential
equations and Monte-Carlo simulation. We focus on model selection
criteria based on minimizing the Kullback-Leibler entropy distance between
the unknown probability and a Bayesian prior. In the special case of
diffusion processes, this leads to a constrained stochastic control
problem that can be solved via Lagrange multipliers. In the case of Monte
Carlo simulation, one must construct appropriate weighted measures, in a
technique which is reminiscent of "importance sampling." These problems
and their generalizations to non-linear constraints will be studied in a
unified way using methods of Applied Mathematics and Numerical Analysis.
The goal is to achieve a better understanding of the question of model
selection in Financial Economics, which is crucial for the management of
financial risk by quantitative methods.

Non-Technical Description

This research proposal deals with the pricing and hedging of complex
financial instruments called derivative securities. The technology derived
here, which is based on the mathematical fields of probability, statistics
and numerical analysis, is used to develop accurate tools for pricing and
managing complex financial instruments. The motivation for this research
comes from the fact that quantitative finance offers many challenging
mathematical and computer-related problems. This is a consequence of the
so-called "globalization'' phenomenon that links different financial
markets and economies throughout the world. The current proposal deals
with new mathematical methods for fine-tuning these models. Our aim is to
better understand how they work and how they represent financial risk. By
bringing to bear robust statistical methods and powerful mathematical
techniques, we expect to shed light on pricing and risk-management systems
and to develop better models that can be shared with the financial
industry. This is an important application of Mathematics to a new area
of research: quantitative finance. The proposal is part of a greater
effort at New York University's Courant Institute in the field of finance
and markets. So far, we have been successful in training young scientists
that enter the business arena with a unique set of professional skills.
This suggests that such research is both directly and indirectly suitable
in terms of the larger picture of the national economy.